ARPA-NSF Workshop: Scalable Scientific Software Libraries and Problem Solving Environments, Purdue University, September 25-27, l995

This workshop addressed issues in building problem solving environments (PSEs) for partial differential equation (PDE) based applications and, more concretely, initiating a development of a set of common community standards for the components of scaleable PDE libraries. There is no natural forum for establishing such standards and yet they are essential to progress in building PSEs for PDE based applications. The size and complexity of these software systems require that builders be able to use components developed by other groups. The results of this workshop are of three types: (1) A proceedings which compiles the material presented at the workshop, (2) a workshop overview paper to be submitted to IEEE Computational Science and Engineering, and (3) A series of smaller follow-on meetings of a group of five to ten people who will specify, analyze, and propose community standards for components of scalable PDE libraries. These standards, will build on existing standards from sub-areas such as linear algebra (ScaLAPAK) and parallel computing (e.g., HPF, MPI).